Acquisition of a Mass Spectrometer, NMR, CD Instrument Package

This award will support the acquisition of three pieces of shared instrumentation for the Department of Chemistry at the University of California, Riverside. A mass spectrometer, a circular dichroism spectrometer, and a nuclear magnetic resonance spectrometer will facilitate the identification of a broad range of important organic molecules. A five-year organic analysis laboratory development project, initiated in 1981, will be completed by addition of three instruments. The first, a mass spectrometer, will complement an ultra-high performance instrument presently available. The new instrument will accomodate a broad range of users requiring routine low resolution and exact mass, EI-CI capability. This will better serve user needs. A new 1H/13C 300 MHz NMR spectrometer will replace an obsolete instrument now in service. Finally, a circular dichroism spectropolarimeter will be added to give the laboratory a capability presently lacking.